Issues In Training Computational and Mathematical Biologists: A Workshop to be held Dec. 9-10, 1990, at Cold Spring Harbor, New York

This award will support a workshop which addresses issues in training computational and mathematical biologists. The workshop will be held at Cold Spring Harbor on December 9 and 10, 1990. The participants of this workshop will write a document that will be incorporated into the larger computational biology workshop report.